Pile Foundations Subjected to Arbitrary Seismic Environment

The interaction of foundation materials with the foundation or structure under earthquake loading can significantly alter the dynamic response of the structure. Pile foundations are widely used deep foundations and can exhibit significant soil-structure interaction effects. This research project will consider and implement the option of an arbitrary seismic excitation into a computer program for the analysis of pile-supported embedded structures. The program will then be used to study the seismic response of the foundation system to non-vertically incidenting body waves and to spatially incoherent seismic environments. The results of this research project can be used by researchers and practitioners in the design of pile foundation systems for structures.